Characterization of the acylCoA Binding Domain of E. coli FadR

9407220 DiRusso Fatty acids and higher lipids are essential to cellular and organismal structure and function. Our interests lie in understanding how lipid metabolism is coordinated to meet the nutritional, structural and regulatory needs of cells and organisms. Escherichia coli is a useful model system since its lipids are confined to the cellular envelope and this organism modulates its membrane fatty acid and phospholipid composition in response to variations in the nutritional and environmental state of the cell. The research proposed here investigates the E. coli transciption factor FadR which regulates at least nine genes required for anabolism and catabolism of fatty acids. FadR exerts its effect by binding to DNA to cause repression of genes encoding proteins required for fatty acid catabolism and to activate genes required for fatty acid anabolism. DNA binding by FadR is specifically prevented by long-chain acylcoenzyme A thioesters. The FadR gene has been cloned and sequenced; and the protein purfied and preliminarily characterized by the Principal Investigator. The present proposal is designed to: (1) address questions regarding FadR protein structure and function, and (2) evaluate physiologic parameters which result in induction and the cascade of FadR-dependent alterations in gene activity. The expertise of the Principal Investigator is in the molecular genetics of E. coli fatty acid metabolism. The present award supports research activities during a sabbatical leave in the laboratory of Dr. Jens Knudsen at the Institute of Biochemistry, University of Odense, Odense, Denmark to acquire technical skills in additional areas of lipid and protein chemistry. The specific research to be conducted involves investigations into: (1) the regulation by acyl- CoA thioesters of FadR-DNA binding activity and prevention of transcription activation, and; (2) determination of native FadR structure and FadR complexed with acyl-CoA. %%% Fatty acids an d higher lipids are essential structural, regulatory and nutritional compounds in all organisms. Our interests lie in understanding how lipid metabolism is coordinated to meet the nutritional, structural and regulatory needs of cells and organisms. The bacterium E.scherichia coli is a useful model system since its lipids are confined to the cellular envelope and this organism modulates its membrane fatty acid and phospholipid composition in response to variations in the nutritional and environmental state of the cell. The research proposed here investigates the Escherichia coli transcription factor FadR which regulates many genes encoding proteins required for both synthesis and degradation of fatty acids. FadR regulates these genes by binding to DNA to decrease the activity of those encoding proteins required for fatty acid degradation and to increase the activity of those required for fatty acid biosynthesis. DNA binding by FadR is specifically prevented by fatty acyl-coenzyme A thioesters. The present proposal is designed to: (1) address questions regarding FadR protein structure and function, and (2) evaluate physiological parameters which result in induction and the cascade of FadR-dependent alterations in gene activity. ***